Design Methodology for Mixed Analog/Asynchronous VLSI Implementations of Communications Systems

The PIs are exploring a new design methodology for mixed analog and asynchronous circuits. As transistor feature sizes move towards 0.1 micron and clock frequencies exceed one GHz, it is becoming increasingly difficult to maintain a globally synchronous paradigm. The goal of this project is to develop and apply a design methodology for mixed analog/asynchronous circuits. This project uses driving examples from the field of communications due to their challenging performance and power demands. The asynchronous nature of communications systems coupled with recent analog implementations of probability propagation algorithms (PPA), a key operation in such systems as turbo codes, makes this field a prime target for potential gains. This project extends the work in the area of iterative decoding using probability propagation to develop algorithms and architectures which can take advantage of the properties of a mixed analog/asynchronous system. This project also applies CAD tools for timed asynchronous circuits to design these systems. Finally, this project is developing a new circuit design methodology for the implementation of mixed analog/asynchronous systems.